Technicians

9701946 Rawson This award to Columbia University in the City of New York provides shipboard technical support, shore-based support, instrument maintenance and instrument calibration for researchers using R/V Maurice Ewing, a research vessel operated by Lamont-Doherty Earth Observatory as part of the University National Oceanographic Laboratory System research fleet. The technical support awarded here will assist NSF-funded researchers conduct a diverse suite of marine geological and geophysical studies throughout the world ocean in 1997. ***